Characteristics of the 670 km Seismic Discontinuity Beneath Subduction Zones

This research is to use the study of the S-P converted phase S670P generated at the 670 km discontinuity beneath subduction zones to constrain the nature of the discontinuity and its dynamical significance. After successful mapping beneath the Tonga subduction zone, new areas such as the Izu-Bonin, Marianas, Java, Japan, and Kurile arcs will be investigated. Moment tensor solutions, where available, will be used to account for amplitude effects. This work has significance in the current controversy as to the depth of penetration of the subducting slab into the lower mantle.